Postdoctoral Research Fellowships in Chemistry

Dr. Carmichael S. Roberts has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Roberts received his doctoral degree from Duke University under the supervision of Professor Bertram Fraser-Reid. Dr. Roberts will continue research at Harvard University under the sponsorship of Professor George M. Whitesides. His postdoctoral research will target cell adhesion processes relevant to the influenza virus. The research will focus on understanding better a structure-activity relationship of neuraminidase, a catalyst in post-infection release of newly formed virions from the host cell, by developing polymeric inhibitors of its activity. The interaction of biocompatible polymers with the influenza virus will help define the importance of polyvalency and multicooperative binding observed during infection, and in the cell adhesion processes in general. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph. D.s and attract them into meaningful careers in contemporary chemical research and teaching.